SBIR Phase I: Periodic Waves in Shallow Water

Theoretical predictions are to be made for the characteristics of finite amplitude, shallow water waves without the restriction on one-dimensionality. Two independent spatial periods in the two horizontal directions will be modeled, representing long-crested and short-crested waves. The complete model will be enclosed in a simple software package.